Planning Grant for Online Magazine in the History of Mathematics and Its Use in Teaching

The Mathematical Association of America (MAA) proposes to investigate the feasibility of developing an online magazine in the history of mathematics and its use in teaching, with a target audience of grades 9-14 teachers of mathematics. The online magazine, a new component of the NSF-funded Mathematical Sciences Digital Library, is intended to be a living, growing resource, and will incorporate features such as hyperlinks and interactive graphics. A range of materials will be included in the magazine including expository articles, translations of original sources, historical problems, a mathematical calendar, reviews of books and websites, teaching materials and translations of articles previously published in other languages.